Mathematical Sciences: Low-dimensional Manifolds and Knot Theory

9303229 Gordon Professor Gordon will investigate various questions about the Dehn surgery construction of 3-manifolds from knots and links. In the generic case, the knot or link complement will have a hyperbolic structure, which persists under most surgeries. This persistence fails if (and only if, modulo the Geometrization Conjecture) the resulting 3-manifold contains an essential sphere or torus, or is Seifert fibred. This project is to continue a joint program with Professor John Luecke of understanding and circumscribing these exceptional surgeries via the combinatorial analysis of intersections of surfaces. Results obtained so far include the Knot Complement Conjecture, the Reducibility Conjecture, and strong restrictions on the creation of essential tori. Specific foci of the project will include the Cabling Conjecture and the question of when Seifert fibred spaces (both toroidal and atoroidal) arise. The general context of the project is the attempt to further our understanding of 3-manifolds. A 3-manifold is a "space" which is locally like ordinary 3-dimensional Euclidean space, but whose global topological structure may be quite complicated. For example, our universe is a 3-manifold, whose global structure is at present unknown. The problem of describing all 3-manifolds in a reasonable way is an important one that is still unsolved, although much progress has been made. The subject is a rich one, which draws on a wide range of mathematical techniques, including some derived from quantum physics. The main focus of the project is Dehn surgery, which is a procedure for constructing 3-manifolds from a knot (i.e. a closed loop embedded somehow in 3-dimensional Euclidean space) or, more generally, a link (i.e. several knots linked together). Roughly speaking, the knot or link is removed and "sewn back" differently. Since it turns out that all 3-manifolds can be constructed in this way, a sufficiently good understanding of Dehn surgery wou ld have important implications for the general theory of 3-manifolds. ***